A Critical Experiment in Fluidized Bed Heat Transfer

Fluidized beds provide very efficient heat transfer, but their design is clouded by a long unresolved discrepancy between theory and experiment. There experiments should resolve the issue and should, therefore, put the design of fluidized beds on a much firmer footing.